NSF/Industry Multi-University Material Handling Research Center

This project initiates the first year of a five-year continuing award to the University of Cincinnati to join with the University of Arkansas and Florida Atlantic University in merging with the Georgia Institute of Technology's Industry/University Cooperative Research Center for Material Handling. The university has developed the company support to be added to the Center's industry base. The research projects approved by the new consolidated Industry Advisory Board for the University of Cincinnati are "Decision Support System for the Design Packing and Palletizing", "Simulation Generator for Material Handling Systems" and "Evaluation and Enhancement of Fresh Fruit Material Handling, Transport, and Storage." A minority woman undergraduate is augmenting the Center's research program by studying "Palletizing Simulation." The researchers are recognized experts in their fields and have the capability and facilities to participate in the new merged Center. The Program Manager recommends the University of Cincinnati be awarded $50,000 for the first year of a five-year continuing grant. An Additional $3998 is recommended from the Women, Minorities, and Disabled Engineering Research Assistants Program. Near the end of each 12 month period the Program Manager and/or the Director of the Engineering Centers Division will review the progress of the Center on a number of criteria, including the following: (1) the extent to which the university-industry interaction and collaboration is developing; (2) the extent to which the support base is expanding; (3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Director will recommend support of the next period of this continuing grant.